Characteristics of Grammatically-Specified, Publication- Oriented, Structured Document Representations

Existing systems have demonstrated the structured document representation's usability and usefulness. The representation's continued importance is insured by its inclusion in the ISO SGML Draft International Standard (8879). Recent research has developed user interfaces for manipulating structured documents that incorporate a grammatical definition of their component's interrelationships. As this user interface design shifts from research to development, it is appropriate to more closely examine the strengths and weaknesses of the representation. Two aspects will be investigated. The first is how the activities of cooperating authors can be aided in an environment supporting such a representation. Such authors may be interacting with separate computers that are only loosely-coupled--perhaps over an intermittent, low-bandwidth link. An important part of this portion of the project will be the development of mechanisms that permit repartitioning of the already structured document. The second aspect is the degree to which the specification of a line- oriented drawing can be isolated from the context in which the drawing is displayed. A strength of the structured document is the degree of such isolation with textual material. This portion of the research is directed to developing a model of line drawings that permits a similar isolation from the display context.